BEE NSFDEB-NERC: The eco-evolutionary dynamics of age-specific resistance to infectious disease

When a disease epidemic sweeps through a population of plants, animals, or humans, the youngest individuals in the population are often hardest hit. This is because juveniles are typically more susceptible to infectious disease than adults. Indeed, the spread of many human diseases such as measles and chicken pox is largely driven by children. Likewise in many wildlife species, the spring ‘pulse’ of new highly susceptible young can drive epidemics, including diseases that risk spilling over into human or livestock populations. However, we lack a basic understanding of why juveniles are inherently so susceptible, even after accounting for prior exposure to disease. This research will use mathematical models and experiments with a model plant system to investigate the fundamental ecological and evolutionary processes driving the evolution of age-specific susceptibility. The results will substantially increase our understanding of the feedbacks between resistance evolution and disease spread, which will improve management strategies for wildlife disease, and inform crop breeding for disease resistance. The research will also increase public understanding of science and enrich local biodiversity records and museum collections through new citizen science outreach activities that are integrated with the basic research.

The question of why juveniles are so susceptible to disease is puzzling from an evolutionary perspective because infection prior to reproduction would seem to have a much greater negative impact on a host than infection later in life (after the host has had a chance to reproduce). Natural selection should therefore favor individuals that are less susceptible to disease when they are young. This project will test the novel hypothesis that juvenile susceptibility is maintained by feedbacks between evolutionary change in host resistance and ecological change in disease abundance. These “eco-evolutionary” feedbacks occur because the evolution of disease resistance at any age in the host population, can in turn reduce the intensity of disease epidemics. Critically, lower disease-levels make it less likely that a host will encounter disease as a juvenile, thereby allowing the maintenance of juvenile susceptibility. The researchers will build on this novel eco-evolutionary framework to develop a predictive mathematical theory for understanding key host and pathogen traits, and the feedbacks driving the evolution of age-specific disease susceptibility. Then to establish how these age-specific selection pressures are instantiated in a real-world system and to test key predictions from the model, the research team will utilize the model plant-disease system, anther-smut (Microbotryum) on white campion (Silene latifolia) to quantify the fitness costs, benefits, and evolutionary potential of age-specific resistance under a range of disease frequencies. To increase the broader impacts and societal benefits of the proposed work the researchers will engage local natural history societies in original scientific research on the distribution and diversity of ‘micro-fungi’, and provide meaningful research opportunities for undergraduates.